Research and Educational Program in Magnetic Resonance Imaging

Abstract EEC-9527457-University of California-Davis, Dr. Michael Buonocore This award provides funding to the University of California-Davis for the support of a Combined Research-Curriculum Development (CRCD) Program entitled, "Research and Educational Program in Magnetic Resonance Imaging." The CRCD program emphasizes the need to incorporate exciting research advances in important technology areas into the upper level undergraduate and graduate engineering curricula and stimulates faculty researchers to place renewed, equal value on quality education and curriculum development. The goal of this proposal is to develop an outstanding research and education program in Magnetic Resonance Imaging (MRI) that will serve as a model program and resource at the national level. This program will train engineers in the fundamentals and recent advances of MRI, to prepare them for careers in industry research and development, and to fill the growing need for engineers knowledgeable in MRI technology. *** ??